Workshop for PIs and Co-PIs of NSF Information Technology Research (ITR) and Quantum and Biologically Inspired Computing (QuBIC) Projects

EIA-0334333
K. Birgitta Whaley
Univ of California,Berkeley,

A meeting is proposed of the principle (PI) and co-principal (co-PI) investigators working
in Bio-computation and Quantum Information Sciences who are currently funded through the
NSF Information Technology Research and QuBIC Programs. The meeting will take place at
the Fort Lauderdale Marina Marriott in Fort Lauderdale, Florida, May 13-16, 2003.